CAREER: Exploring the Complexity Limits of Joint Data Detection and Channel Estimation: Exact, Polynomial-Complexity Solutions and Ultra-Fast Approximations

Future communication systems will be required to operate very close to
their theoretical limits and achieve high performance with limited
resources (e.g., bandwidth, energy, complexity). In order to realize
these goals, the receiver of a communication system should be able to
decode the digital data in the presence of channel uncertainty (e.g.,
unknown channel quality, interference, etc.). The current state of
knowledge regarding the complexity of these receivers is that their
complexity grows exponentially with the sequence length. This is
unacceptable when practical implementation of these algorithms is of
interest. A number of fundamental questions thus arise: (i) How
accurate is the conventional wisdom that complexity grows
exponentially with the sequence length? (ii) What is the impact of
the above question on the design of near-optimal, approximate
algorithms suited for ultra-fast integrated circuit implementation?
(iii) How can the complexity/performance tradeoff of these approximate
algorithms be analyzed, and how can it be improved?

This research addresses the aforementioned fundamental questions
using a novel approach in looking at the problem of joint data
detection and channel estimation, consisting of two main thrusts: (a)
On the theoretical front, the current state of knowledge is challenged,
by investigating a broad class of communication scenarios for which
the exact solution can be obtained with only polynomial complexity.
(b) Utilizing the constructive proofs of the aforementioned statements,
a family of novel receivers is investigated with near-optimal
performance, linear complexity, and moreover, algorithmic structure
that is suitable for high-speed hardware implementation.